P-Chem with a Purpose - Developing Context-Rich Materials for Physical Chemistry Lecture

Chemistry (12) This proof of concept project is addressing the revitalization of the physical chemistry curriculum through the development of a cohesive set of context-rich materials to supplement physical chemistry lecture courses. In the form of modules, these materials interweave historical, biographical, and technical perspectives on modern research areas related to physical chemistry. They are designed to directly engage students with examples drawn from the primary literature using a mix of conceptual questions and quantitative problems and provide instructors with a resource that can be easily integrated into either a traditional lecture course or an active learning environment at a wide variety of institutions. The project is utilizing a cohort of adopters to both assess and refine the materials. Tested modules along with supporting documentation are being disseminated through a web site.